The Dimension of Causal Sets

0071354
Reid
This project seeks to develop combinatorial methods to determine the
manifold dimension of causal set representations of curved spacetimes. The purpose of this study is to help forward the effort to construct a theory of discrete quantum gravity via the causal set approach. An analysis of the failure of currently existing, coarse-graining invariant, methods for flat spacetime dimension determination will be employed to facilitate this work.
The ability to perform curved spacetime dimension determination on causal sets will provide a major step forward in the ability to identify those causal sets that are good candidates for a physically viable model of the small-scale structure of spacetime.